NSF Young Investigator

9357480 LeClair This NYI award will support the research of a promising and accomplished young investigator. His research will include a development of novel approaches to solutions of two- dimensional quantum field theory based on infinite quantum affine symmetry. ***